Nonlinear and Chaotic Cross Waves: Theory and Experiment

Further research is conducted on cross waves and edge waves. The research is both theoretical and experimental. These waves form crests in a direction perpendicular to the obstacle which generates them, and they form at sufficiently large amplitudes and wave steepness. The study will focus on instability modes, the occurrence of chaotic regimes, and progressing solitary waves (solitons). Means for suppressing cross waves on wave makers will be further explored.